Sum of Kloosterman Sums, Singular Exponential Sums and Their Applications

The investigator studies the methods of estimating the sum of exponential
sums, especially the sum of the Kloosterman sums, which explores the subtle
cancellation of the terms and which goes beyond the bounds of
Weil and Deligne for exponential sums. The applications of such methods
to two outstanding problems are highlighted.
These sums are fundamental objects and arise naturally from a variety of
open problems in number theory and harmonic analysis. The investigator
studies the optimal way to estimate them, which potentially has striking
applications to several well known unsolved problems.